A Novel Long-Lived Target for Accelerator Production of 14 MeV Neutrons

A novel accelerator target for the production of high yields of 14 MeV neutrons will be developed. In this target, a new method will be used to inhibit the replacement of tritium with beam deuterons and thus prevent the evolution of tritium gas leading to reduced neutron yield. Usable lifetimes in the thousands of hours range are expected. In Phase II of the proposed research program, a compact neutron generator utilizing this novel target will be fabricated and tested.